Mechanical-Design Optimization by Means of Heuristics and Artificial Intelligence Concepts

Many mechanical design problems are characterized by a large number of variables that must be specified before the design is completed and by a large number of constraints that must be satisfied for the design to be feasible. Under these conditions, mathematical optimization is used; however, optimizing action can consume large amounts of human and computer resources. The principal investigator will extend his prior work on the design of mechanical hands (robotic grippers) by studying the unstated knowledge and rules that are used during the design process. One goal is to create a computerized tool that will perform many of the time-consuming tasks normally required of a designer when optimization techniques are used. Another goal is to generalize the design rules that are developed to mechanical designs other than grippers.